ADVANCE Leadership Award

This Leadership Award is to recognize and support the role of Prof. Richmond in
increasing the participation and advancement of women in the chemical sciences
through her leadership role in COACh. The funds will allow her to maintain her very active
research program at the University of Oregon while providing her with more time to direct the
COACh activities at a level appropriate for the demands and needs of women chemists, chemical
engineers, and the chemical community in this country.

Over the past twenty years the number of women getting undergraduate degrees in
chemistry, entering graduate school in chemistry and obtaining doctorate degrees in chemistry
has been increasing. Women currently receive ca. 41% of the bachelor's degrees and almost one-third of the Ph.Ds granted in this field. Unfortunately, this increased number of women in the
pipeline is not resulting in the significant changes in the chemical workforce that many had
predicted. This is particularly noticeable in the academic workforce. Women make up
approximately 16% of chemistry faculty in four-year colleges and less than 10% of the chemistry
faculty at doctoral granting institutions. Given the profound role of academic institutions in
shaping the workforce in the chemical sciences and the expectations of future, efforts to enhance
the numbers, success, and visibility of women chemists in academia are essential to improving
the participation of women in the broader chemical sciences workforce. With the anticipated
high turn-over in faculty positions in the coming decade, it is imperative that swift action be
taken to assure that underrepresented groups are actively recruited and promoted into these
vacated positions to produce a more balanced representation of gender and race in academia in
the chemical sciences. COACh was developed in response to these concerns.

This project is supported by the NSF ADVANCE Program. The overall mission of the ADVANCE Program is to increase the participation of women in the scientific and engineering workforce through the increased representation and advancement of women in academic science and engineering careers.